A Novel Bi-Enzyme System for Amperometric Biosensing of Plant Volatiles

1159540
Ramasamy

The goal of this project is to develop an electrochemical biosensing system to detect a volatile
compound released by plants. The volatile chemical signature of plants carries unique
information that can be helpful in the identification of the state-of-heath of the plant. Detection of
this signature can advance our understanding of the “plant language” and will eventually help in
the development of real-time health monitoring systems for large-scale agriculture. The
proposed work integrates material science, biochemistry and electrochemistry to develop a
nanostructured platform for amperometric biosensing. Successful completion of the proposed
work will result in a novel bi-enzyme based electrochemical biosensor with tunable properties.
The hybrid composite nanomaterial interfaces to be developed in this project will provide
multiple benefits and can be applied to other bio-electrochemical systems. The proposed work
will directly impact the field of agriculture and forestry. The project will also have broader
influence in the development of enzyme-based biosensors. The proposed project will provide
education and training for graduate and undergraduate students and post-docs. Results from
the project will be broadly disseminated through conference presentations, seminars and
scientific publications. The proposed outreach activities will provide a social impact on the high
school students in the state of Georgia.